VETERANS@VT: A Program for Recruiting, Transitioning, and Supporting Veterans to Graduate Programs in Engineering and Beyond to Civilian Careers

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5)

This engineering education award to the Virginia Polytechnic Institute and State University will develop innovative new graduate degree programs in mechanical engineering that are customized to the needs and strengths of veterans. A particular emphasis will be including research experiences and industrial internships within the degree program. The results will also be presented on the web, at technical conferences and published in professional journals. The project is expected to assist the transition of veterans to civilian life and to enhance the number of students who complete engineering degrees and are ready to fill engineering jobs or start new high tech businesses.